B Cell Lymphogenesis in the Fetal Piglet

Abstract 9723721 Butler Observations made in chickens, sheep, swine and cattle suggest that many paradigms of B cell and antibody repertoire development established in laboratory mice and humans are not applicable to all species and in fact may be the exception rather than the rule. The proposed research will characterize the ontogeny of the antibody producing cells in fetal piglets and determine how these cell generate the antibody repertoire available to the newborn piglet at birth through rearrangement and somatic mutation of the genes which encode them. A detailed analysis of this developmental process in the fetal piglet model, will provide valuable insights into this mechanism. These studies will broaden out knowledge of the development of the immune system in higher vertebrates. %%% In order to respond to many different harmful agents to which an organism is exposed, primates and rodents recombine genetic components which code for these different antibody molecules. Other organism have developed different mechanism to generate a large number of different antibodies, and in these studies fetal piglets will be used to determine they system which the pig uses able to make these diverse antibodies. ***